RUI: Estimation of Ventilation/Perfusion Distribution in Lung Disease

The purpose of this research is to apply a more powerful mathematical approach to model the transport of gases to and from the lungs and to produce a better understanding of the complex mixing and exchange processes that occur in the lungs.